CSR: Co-Designing Virtualization and System Infrastructure for Efficient Vehicle Computing and Safe Onboard Intelligence

Modern vehicles are rapidly becoming powerful computing systems that support autonomous driving, intelligent services, connectivity, and personalized user experiences. These capabilities rely on large amounts of software and artificial intelligence running simultaneously on shared hardware inside the vehicle. However, making these systems both efficient and safe remains a major challenge because different applications must compete for limited resources while responding quickly and reliably to changing driving conditions. This project develops new methods that help vehicle computers run multiple intelligent services more efficiently and securely. The research explores how software and hardware can work together to improve performance, reduce delays, increase reliability, and better support future vehicle computing and onboard intelligence.

Smart vehicle increasingly resembles compact data centers that integrate diverse processors, sensors, operating systems, and software services into a unified computing environment. Unlike traditional cloud systems, vehicle platforms must adhere to strict constraints regarding timing, power consumption, safety, and reliability. These unique requirements raise fundamental questions about how computing resources should be shared, managed, and secured in future intelligent vehicles. To address these challenges, the project pursues two complementary research directions. The first thrust studies hardware and software collaboration to improve efficiency of artificial intelligence workloads through adaptive pipeline parallelism, cross-layer scheduling, and optimized input and output processing. The second thrust examines security and isolation mechanisms for mixed-criticality workloads by developing adaptive resource management, container-specific kernel environments, and lightweight hardware-assisted protection techniques. Together, these efforts establish new architectures and virtualization mechanisms that improve performance predictability, resource utilization, and security in intelligent vehicle platforms.

The broader impacts of this project include advancing the safety, efficiency, and dependability of future computing and transportation systems. The improved infrastructure can support more responsive driver assistance systems, safer onboard artificial intelligence services, and more efficient use of vehicle hardware resources. The project will foster education and workforce development by engaging undergraduate and graduate students in interdisciplinary research spanning computer systems, artificial intelligence, cybersecurity, and transportation technology. Research software, educational materials, and project findings will be broadly disseminated to strengthen national research infrastructure and help prepare the next generation of scientists and engineers developing safe, reliable, and intelligent computing and transportation technologies.